RUI: Analysis of Pronucleus Motility in Marine Eggs

Among basic events of intracellular motility in eukaryotic cells are directed movements of nuclei and organelles occurring in association with microtubules or microfilaments. While unidirectional movements on microfilaments is mediated by the ATPase myosin, bidirectional movements on microtubules are mediated by two different motors. The protein kinesin may function as an anterograde organelle translocator, while a protein similar to ciliary dynein may function as a retrograde translocator. It is proposed to investigate the mechanism by which the pronuclei of marine eggs move along microtubules. These eggs are readily available, can be easily fertilized to initiate division, and are well suited for studies of retrograde motility. The female pronucleus moves exclusively in a retreograde direction along the microtubules assembled by the sperm aster, while other organelles move predominantly, but not exclusively, in this direction. An in vitro translocation system will be constructed to observe movements of pronuclei. The retrograde translocator responsible for these movements will be localized and characterized, and other cytoplasmic factors necessary for retrograde movements will be identified. Finally, the regulation of motility and changes that occur before and after fertilization will be investigated. The results of these studies will increase our understanding of the mechanisms by which cellular organelles move, and, in particular, will characterize the the movement of the pronuclei of fertilized eggs.